Mathematical Sciences: 49th Session of the International Statistical Institute, Florence, Italy 8/25-9/3/93

This award is for travel grants for United States participants to attend the 49th Session of the International Statistical Institute (ISI) in Florence, Italy, from August 25 to September 3, 1993. The funds, which will be administered by the American Statistical Association (ASA), will provide partial support for transportation costs for individuals selected from institutions and non-profit associations. A priority of the ASA is to provide opportunities for junior researchers who have no other funding opportunities, to attend and participate in this important meeting. The sections of the ISI include (1) the Bernoulli Society for Mathematical Statistics and Probability, with specific groups or committees in stochastic processes, statistics in the physical and engineering societies, European statisticians, and Latin American statisticians; (2) the International Associations for Survey Statisticians which holds seminars, work-shops, and tutorials preceding the ISI meeting; (3) the International Association for Statistical Computing; (4) the International Association for Official Statistics; and (5) the International Association for Statistical Education. Also meeting in conjunction with ISI are specific groups with interests in international training centers, problems of industrial statisticians, and other special interest groups. The convergence of this broad spectrum of statisticians, with participants from many countries, provides an excellent forum to present and discuss research results and educational activities in statistics.